Planning Grant: Assessing STEM Practices At Wiley College

Wiley College is a Historically Black College, founded in 1873. The institutions will utilize HBCU-UP funding to 1) assess Wiley College student perception of science; 2) assess effectiveness of teaching/learning strategies; 3) assess the strength of the college's student support services. The expected outcome of this project will be a better understanding of the institution's STEM programs, and the development of strategies that will strengthen the undergraduate STEM program at Wiley College.